Planning for 2nd International Conference for Implementationof Safety & Health on Construction Sites

It is the objective of this project to enhance the dissemination of research, product inventions and practical developments of safety and health at construction sites The practice of safety improvements is advancing by leaps and bounds. The new information and knowledge being created around the world needs to be mutually shared. This conference will contribute to learning from others. The conference will bring together researchers and senior practitioners and possibly contribute to the development of international standards on safety.